STC: Center for Learning the Earth with Artificial Intelligence and Physics (LEAP)

LEAP, the Center for Learning the Earth through Artificial Intelligence and Physics, seeks to use Artificial Intelligence and Machine Learning (AI/ML) to improve Earth system models (ESMs) so they can provide more reliable information about future weather and environmental conditions. These models represent interconnected processes, such as how surface vegetation growth influences heat and the availability of wildfires fuels, and how atmospheric chemistry of smoke plumes affect air-quality downwind of large fires. Better models can support public safety, infrastructure and resource planning, and emergency preparedness while strengthening U.S. leadership in AI and ESM. LEAP also develops an AI-skilled Earth science workforce and provides accessible, decision-relevant information to public- and private-sector users.

LEAP addresses uncertainties in the representation of processes such as clouds, ocean turbulence, and forest canopies by developing AI/ML methods that complement traditional theory- and physics-based approaches. These methods identifying relationships in the growing volume of Earth system data from satellites, in-situ networks, and field campaigns. For processes such as cloud formation and ocean turbulence, detailed small-scale simulations can also provide surrogate data for developing and evaluating AI-based model components. In addition to applying the power of AI/ML to this wealth of data, LEAP uses AI/ML, particularly diffusion models to downscale ESM output to finer spatial scales that can be more useful to decision makers. The center develops tools that make observations, model output, and AI-enabled analyses more accessible and useful to researchers and other users.